SGER: A Field Experiment on Rebuilding Sri Lankan Microenterprises After the Tsunami

Project Title: A Field Experiment on Returns to Capital in Sri Lankan
Microenterprises

The December 2004 Tsunami devastated a number of countries, with Sri Lanka
one of the hardest hit. The official death toll in Sri Lanka has risen to
over 30,000, with 850,000 people displaced. Donor agencies have responded
to initial needs, and appropriate strategies for rebuilding and recovery
are now beginning to frame the policy debate. This project proposes to
provide a direct opportunity to help microenterprises in Sri Lanka recover,
and more broadly, to learn about how to help businesses recover from
disasters. The primary objective will be to estimate returns to capital in
microenterprises and study the various determinants of firm investment
decisions. The PI's propose to sample 350 microenterprises six times each over
the course of eighteen months. The firms will be surveyed in Colombo and
Kalutara, both regions affected by the tsunami, allowing information on the
timeline of recovery. After each survey, 20 percent of enterprises will be
randomly selected to receive a cash payment or capital equipment for their
enterprise. The capital treatment will generate changes in capital stock
which are not correlated with entrepreneurial ability, against which
changes in the performance of the enterprise can be compared. The cash
treatment along with survey questions on risk and expectations will provide
information on the the investment decisions of firms. Direct comparison of
the two treatments will provide information about the way in which
entrepreneurial ability enters into the microenterprise production
function, and will additionally provide policy information on the relative
merits of targeting resources through in-kind versus cash payments. The
project has a number of potentially large policy implications for recovery
projects after disasters and for the operation of microlending programs. In
addition, the panel dataset created of microenterprises will be one of the largest
anywhere in the world and will be made available to other
researchers.